Summer Symposium in Real Analysis XXXII, June 2008, Chicago, IL

The proposal is to help defray the expenses of participants in the Summer Symposium in Real Analysis XXXII that will take place June 10-14, 2008, Chicago State University, IL. This conference has occurred annually since 1978, twice in 1982, and is considered to be the premier conference of its type by members of the real analysis community. Support will be provided to participants who do not currently hold NSF awards, with possible exceptions allowed for plenary speakers. Much of the funding will be directed to graduate students, postdocs, and junior faculty, but some senior faculty may be funded as well.